Optimization of Heterologous Protein Secretion from YarrowiaLipolytica: An Integrated Biomolecular and Bioprocess Engineering Approach

9308822 Ryu This project is on research to develop an expression and secretion system for the yeast Yarrowia Lipolytica. The work involves extensive molecular biological studies which includes development of a transformation-secretion system, genetic analysis of a promoter, and isolation of a high secretion mutant. The developed strain will be used to express model proteins of industrial relevance, and a two stage fed-batch reactor system will be used to optimize expression levels.